REU Sites: Dryland ecology and biodiversity in the northern Chihuahuan Desert.

This REU Site award to the University of New Mexico, located in Albuquerque, NM, will support training of 10 students for 10 weeks during the summers of 2026- 2028. Students will live and work at the UNM Sevilleta Field Station located on the Sevilleta National Wildlife Refuge in Socorro County, New Mexico. Students will work with a faculty mentor to learn how to conduct research by identifying a research question and developing an independent project in an area of dryland ecology, building upon and contributing to the accumulated knowledge from nearly 40 years of research of the Sevilleta Long-Term Ecological Research Program. Completing a challenging research project, in the company of students with similar interests, builds professional skiils, establishes connections with colleagues of similar interests, and develops transferrable skills in critical thinking and oral and written communication. Students will learn to conduct research and many will present the results of their work at scientific conferences. This program will be assessed using program surveys and by tracking student career outcomes after they leave the program. Students should apply to the REU site using NSF ETAP (Education and Training Application: https://etap.nsf.gov).

The program’s independent research experience inspires students while providing training in public speaking, data analysis in R, conservation management knowledge, and workshops on research ethics and professional development. PIs and mentors emphasize collaboration, the research setting, and linking science to action. Mentors with expertise in ecology and conservation biology across disciplines and a range of taxa including plants, animals, and fungi, form collaborations to enhance participant engagement in formal and informal settings. The Field Station environment further facilitates close student-mentor interactions throughout the summer, while the Sevilleta LTER provides students with greater understanding of the research process through observation and interaction with other researchers. Understanding of hypothesis-testing, data analysis, and interpretation increase as students progress through their projects. Student confidence and scientific identity grow under mentor guidance as they design and implement research, assist peers, report results, and contribute meaningfully to research. The project integrates research and education at every interaction level, enabling students to address national scientific workforce needs. It inspires continued interest in environmental science and STEM careers and prepares students for graduate school and research careers after graduation.